Leading Alternatives in National Energy Solutions (LANES)

The Leading Alternatives in National Energy Solutions (LANES) project at Lane Community College (LCC) in Eugene, Oregon is transferring instructional coursework to the Internet so that community college students across the country can take web-based energy management courses that are coupled to laboratory courses at their home campuses. The goals of the LANES project are to (1) hybridize LCC's Energy Management Program for online and on-site practicum delivery, (2) increase student enrollment in energy management courses through broader dissemination of instructional resources for distance learning, and (3) develop a sustainable infrastructure to support use of LCC's Energy Management Program resources nationwide.